The Micromechanics of a Shape Memory Alloy Solid/Solid Phase Change in Contact with a Liquid/Vapor Phase Change

9700356 Boyd The basic work towards the development of new micro-fluidic MEMS devices that convert the latent heat of liquid/vapor transformation into the work of the shape memory alloy martenistic transformation with no need for complicated kinematic linkages is being conducted. These devices have industrial applications such as arterial clamps, medical catheters, stenosis blocks, drives for micropumps, etc. The thermomechanics of coupled solid/solid liquid/vapor phase transformations is being studies. Both analytical studies and their experimental verification are being conducted. Nickel- titanium (NITINOL) materials are being studies in this work. ***